From Pipeline to Pathways

The targeted research project examines and identifies promising organizational practices in the adoption and institutionalization of career pathways for students who attend 2-year institutions. For the purposes of this study and in the context of the Advanced Technological Education (ATE) program, career pathways are intentionally structured curriculum, pedagogy, and organizational strategies that assist diverse associate degree-seeking youth and adults in gaining access to and progressing through programs that lead to technician careers. Career pathways are designed to integrate the general and technical education needed to prepare youth and adults for employment, for earning associate degrees, and for transferring to additional postsecondary education. The study draws on previous research in technician education conducted by the research team and literature that posits that both access to educational opportunities and successful student progress are components of equity. Using case study methodology and a collaborative research model that includes senior researchers and ATE leaders, the targeted research project provides in-depth analyses of the opportunities and challenges associated with implementing career pathways for technician education. Through the participation of ATE leaders, the project is practitioner-oriented and provides a platform for critically examining the opportunities and challenges involved in collaborative research for bridging the gap between research and practice. The findings from the study have the potential for improving local practices at ATE sites, informing the adoption of promising practices in other programs, and contributing to research on technician education.